Algebraic Combinatorics and its Applications

The proposed research project is concerned with three classes
of problems of algebraic combinatorics. They are related to
several aspects of Schubert calculus and its links with
representation theory, inverse boundary problems, algebraic
geometry, and physics. The first part is devoted to the inverse
boundary problem for certain class of networks. This problem
emerged in an attempt to explain, generalize, and simplify
algebraic and combinatorial constructions related to
representation theory of general linear groups and canonical
bases. It is directly linked to the study of total positivity on
Grassmann manifolds. The second part focuses on combinatorial
and algebraic problems came up in quantum Schubert calculus, which
deals with quantum cohomology of complex flag manifolds and
corresponding Gromov-Witten invariants. The third part is devoted
to a new approach to smoothness of Schubert varieties. The
investigator and his colleague suggest how to extend the notion
of pattern avoidance in a general context of root systems.

The main goal of the proposed research project is to investigate
several problems that originally came from various areas, such as
geometry and physics, and all share a discrete nature. The
investigator suggests an approach to the problem of identification
of networks by boundary measurements. These networks present a
simple model for computer microchips. The problem can be rephrased
as follows: "How to identify a microchip by external examination?"
Another problem is related to certain geometric invariants that play
a role in mathematical physics and algebraic geometry. These
invariants are usually extremely hard to calculate. The
investigator and his colleagues suggest a new efficient technique
for computing invariants of this kind. The last part concerns
with a new approach to the classical problem of smoothness.